Research in Geometry and Topology

The interplay between algebra and geometry is one of the classical
themes in mathematics. Traditionally, one studies geometric objects
via their symmetries. In geometric group theory the situation is
reversed: one starts with a group of symmetries of an algebraic object
(for example, another group) and constructs a geometric object with
the same symmetries. Here the focus is on the study of symmetries of
surfaces. Surprisingly, its geometry is to a large degree governed by
hyperbolic geometry that goes back to Gauss, Lobacevski, Poincare and
others. The goal is to better understand this phenomenon. The
proposer's PhD students and postdoctoral researchers are also
involved in parts of this investigation.

The most important result about the dynamics of classical mapping
classes is the Nielsen-Thurston classification, which explains the
behavior of iterates of simple closed curves. The same goal in the
case of surfaces of infinite type looks to be much harder, but
certainly worthy of a systematic study. The family of groups of proper
homotopy equivalences of a locally finite graph is a sister family to
the family of big mapping class groups, with many similarities and
intriguing differences that the investigator wants to explore. More
classically, the investigator wants to build ``towers'' of successive
approximations to the classical mapping class group complexes, as well
as complexes associated to automorphism groups of free groups, much
like the Taylor series. The process of building these towers is called
``disintegration'' and preliminary work shows that it succeeds for the
arc and curve complexes and sheds new light on their large-scale
geometry. This is yet another attempt to establish that the complexes
associated with automorphism groups of free groups have finite
asymptotic dimension, perhaps the main outstanding open question about
the large-scale geometry of this group. The questions about ergodic
measures could have been asked many years ago, but new methods are
needed to answer them.